Acquisition of Equipment for a Virtual Reality Laboratory For Vision, Visuomotor and Synthetic Environment Research

Acquisition of Equipment for a Virtual Reality Laboratory for Vision, Visuomotor and Synthetic Environment Research Project Summary Twelve members of the Institute for Mathematical Behavioral Sciences, the Department of Cognitive Sciences, the Department of Electrical and Computer Engineering, and the Department of Mechanical Engineering at the University of California, Irvine, plan to establish a virtual reality laboratory for vision, visuomotor and synthetic environment research. These faculty include Myron Braunstein, Charles Chubb, Carol Cicerone, Rui deFigueiredo, Michael D'Zmura, Glenn Healey, Gregory Hickok, Donald Hoffman, Tarow Indow, Michael McCarthy, George Sperling and Charles Wright. The purpose of the laboratory is threefold: to promote research in human and artificial visual and visuomotor systems by the participating faculty, to further knowledge of human behavior and performance in synthetic environments, and to advance research training among students.